Effects of Non-Steady Jets on Impingement Jet Heat Transfer

The PI proposes to make use of the facilities of the Radial Jet Reattachment Laboratory to perform exploratory studies on non-steady submerged radial jet impingement heat transfer. Prior studies by the PI on steady radial jet impingement resulted in very high heat transfer rates. Studies of non- steady non-radial jets by other investigators have demonstrated enhanced heat transfer performance. There is thus a good possibility that a non-steady radial jet may also offer enhanced heat transfer performance compared to conventional jets and steady radial jets.